RUI: Receptor Mediation of Antiestrogen Effects

While estrogens have long been known to have profound effects on reproductive physiology and behavior, this steroid hormone also alters feeding behavior, body weight gain and lipid metabolism. It is believed that these wide range of effects of estrogens are mediated through a receptor-dependent process. Specific protein receptors are localized in target cells within distinct brain regions and compounds that interfere with steroid- receptor binding activity attenuates the hormone response. Indeed these compounds, also known as antiestrogens, are an excellent tool for elucidating the mechanisms underlying the action of estrogen. An extremely interesting finding is that these synthetic agents partially or fully antagonize the effects of estrogen on reproductive physiology and behavior but mimic the effects of estrogen on regulatory processes, such as feeding. Dr. Gray will examine the receptor systems by which these antiestrogens exert their estrogenic agonistic vs antagonistic effects. She has demonstrated the presence of two specific antiestrogen binding sites in different brain regions. She will now characterize the distribution and binding properties of antiestrogen binding sites in the CNS. The results from these studies should lead to a better understanding of how estrogen exerts its complex effects on both reproductive and regulatory systems. Moreover, antiestrogens, such as tamoxifen, nafoxidine, clomiphene, are widely used for the treatment of estrogen- dependent breast tumors. Her work on receptor mediation of antiestrogen effects may help us understand how these compounds act as growth suppressants in tumor cells.